Conference: Workshop on Automorphic Forms and Related Topics

The 38th Annual Workshop on Automorphic Forms and Related Topics (AFW) will take place May 18-22, 2026, at Kansas State University in Manhattan, KS. The AFW is an internationally recognized, well-respected conference on topics related to automorphic forms, which have played a key role in many recent breakthroughs in mathematics. The AFW will bring together a geographically diverse group of participants at a wide range of career stages, from graduate students to senior professors. This is the first time the AFW will meet in Kansas where many experts on automorphic forms and closely related topics are nearby. Thus, in addition to attracting speakers who participate annually, the workshop is likely to draw a mix of new attendees who will contribute new perspectives and energy and benefit from the workshop. The conference will provide a supportive setting for researchers to disseminate new results, learn from other researchers, and begin new collaborations. This grant will fund travel and lodging for junior participants and others without access to sufficient funds to attend the 38th AFW.

Automorphic forms have played a key role in many breakthroughs in mathematics, including the proofs of Fermat’s Last Theorem (by Wiles and Taylor--Wiles, employing work of Frey and Ribet), Serre’s Conjecture (by Khare, Kisin, and Wintenberger), the Sato-Tate Conjecture (by Barnet-Lamb, Geraghty, Harris, and Taylor), the Monstrous Moonshine Conjecture (for which Borcherds was awarded the Fields Medal), and the Fundamental Lemma (for which Châu was awarded the Fields Medal). Automorphic forms are the subject of many important ongoing conjectures, among them the Langlands program, connections to random matrix theory, and the generalized Riemann hypothesis. They also appear in many areas of mathematics outside number theory, most notably in mathematical physics. Additional information can be found on the conference website: http://automorphicformsworkshop.org/